Structural Studies of Designer Helical Peptides

This award is a Research Planning Grant in the Organic Dynamics Program of the Chemistry Division. With these funds, Professor Frank Marã of Florida Atlantic University will study fundamental aspects of the structure-activity relationships of macromolecular assemblies. Small peptides , typically of thirteen residues, will be prepared and their stability and folding characteristics will be examined. A minimalist approach will provide information on strategies for design of novel protein-based materials and modeling of folding events in proteins. Structures will be studied using circular dichroism and nuclear magnetic resonance. Understanding of the basic aspects of dynamic behavior of biomolecules requires the use of small model molecules, for which careful and exact control of structure is realizable, to test structural hypotheses. In this study a series of `designer helical peptides` serves this purpose and the behavior of members of this series will help illuminate the behavior of larger but related biologically important molecules.